CAREER: Opto- Thermo- Electronic Devices

The ability to change and control precisely material properties of
semiconductors by several orders of magnitude has revolutionized our
information age. While the research in semiconductor devices in the last
40 years has been concentrated on the optimization and control of the
opto-electronic properties, there has only been a limited work on
thermo-electric properties. In this research program, we propose to use
same techniques of bandgap engineering and thin film epitaxy to improve
the thermal characteristics and design novel high performance
optoelectronic components. The core of proposed research is based on the
fact that semiconductor heterostructures and superlattices can modify
the average transport energy of electrons beyond what can be achieved
using bulk material. Such modifications in conjunction with judicious
choice of device parameters can make the electron gas absorb thermal
energy from one area in the device and deposit it in another area near a
heat sink. The integrated electrical, optical and thermal approach gives
the opportunity to improve the performance of existing devices. As
specific examples, we will study the design of light emitting diodes and
high power semiconductor lasers in which the device performance is least
affected by ambient temperature changes. This research will be
integrated in an undergraduate class on Properties of Materials. In this
class, students will perform simple transport measurements such as heat
conduction, Hall or Peltier effect. Through the graphical representation
of the transport equation developed for the research part of this
proposal, students will be able to see how the electron gas is moving
through the semiconductor, why there is Wiedemann-Franz law, and how
passage from one semiconductor to another one gives rise to Peltier
effect.